Applications of Fluorescence Spectroscopy in the Undergraduate Laboratory Curriculum

A spectrofluorimeter will be purchased by the Department of Chemistry at Millersville University of Pennsylvania. The instrument will be used in laboratory experiments for the following undergraduate courses: Polymer Chemistry, Physical Chemistry, Biochemistry (3 courses), Analytical Chemistry and Instrumental Analysis. Approximately 180 students per year will benefit from this equipment. Novel laboratory experiments using the instrument are being developed. The equipment will also be used for undergraduate research. Acquisition of a spectrofluorimeter will contribute to the ongoing development of an Option in Polymer Chemistry at Millersville, and will be part of a continuing effort on the part of the Chemistry Department to serve students better by improving equipment holdings for undergraduate laboratories and for undergraduate research.